A Comparative Study of Education in Britain, France, Germany, and Italy

This research examines the development of education as an institution, and the impact of political and economic forces on its expansion. It also relates educational expansion to economic growth, a central topic in the study of the development of human capital within the labor force. The objectives are (1) to extend the analysis of existing research on models of education in the United States to Europe and (2) to extend the time period in which they are examined (1850-1975). The goal is to develop a contingency theory, that is, to specify the conditions under which human capital theory (developing skills ) or credentialling theory (acquiring certification) are more applicable. The contingency of particular interest is a strong and active government (state). Looking at four countries (Britain, France, Germany and Italy) over a long range of time permits considerable variations in state policies, economies and educational systems. This research offers an opportunity to broaden theories of the effects of education on economic growth, first by generalizing across countries and second by generalizing across time. Finding conditions under which educational expansion does and does not affect the economy is important in clarifying current explanatory approaches to educational growth.